A Network to Increase the Involvement of Mathematicians in Pre-college Education

The goal of this project is to develop a network to increase and facilitate the participation of mathematicians in programs for the improvement of pre-college education and expand communication between mathematicians and mathematics educators. Implementation of the network will take place in three stages. The first stage will consist of a workshop in the summer of l988 to establish contacts between people who have been working in the field and those who are just beginning. The second stage will include the establishment of a network that will provide support for people in the process of developing new projects. Network activities will include consultation services, a project databank, a materials resource clearinghouse, the publication of workshop proceedings and a newsletter. Finally regional workshops building on the model of the first workshop will be held so that many more mathematicians will be reached.